SBIR Phase I: Novel Polymer Composites as Photoconductors

*** 9760908 Mikhael This Small Business Innovation Research (SBIR) Phase Iwill explore a solvent-free, industrial scale manufacturing technique for photoconducting polymer composite films. These polymer composites have potential for excellent thermal and chemical stability. The proposed technique brings both the electron acceptor component and the electron donor component of the composite together in a solvent-free, homogeneous, fully cured polymeric structure. The new technology allows molecular-level dispersion of the dopant molecules in a radiation cured polymeric structure. The resulting ultra-thin, polymeric films are entirely solid and are expected to have superior photoconductive properties. These environmentally safe materials are expected to perform better and serve longer than products prepared by spin-coating from organic solvents. Photoconducting materials are employed in many technological applications, such as photodetection and electrostatic imaging. Market opportunities of this technology include xerographic applications. ***